Dissect Functional Domains of the Timeless Clock Protein

Sehgal, Amita IBN-9723035 Sleep-wake and other activity cycles, the maintenance of body temperature, and the secretion of several hormones are just a few examples of physiological processes that are periodic and tied to the 24 hour daily cycle. The timing of all these processes is determined by a master circadian (24 hour) clock within the body. The body clock is usually set by the day:night cycle of light and dark. The clock is genetically determined, and some of the genes that are part of the clock have been identified. This project focuses on one of these genes, the "timeless" gene, which was recently isolated and shown to control a component of the body's clock function. The protein made by the timeless gene is destroyed by light, which is part of the mechanism by which the body clock synchronizes to the day:night light cycle. This project identifies the important parts of the timeless protein and determines how they mediate the clock function's sensitivity to light. These studies provide insight into the mechanisms used by organisms to adapt to their environment, and provide information important to understanding the basis for daily rhythms in normal physiology, cognition, and behavior.